Purchase of an HPLC ESI Mass Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of California in Irvine will acquire a High Performance Liquid Chromatograph-Electrospray Ionization Mass Spectrometer. This equipment will enhance research in a number of areas including a) the separation and analysis of diastereomeric polysiliconates and the evaluation of affinity supports for the separation of oligonucleotides and small peptides (Shea); b) the synthesis of beta-sheet mimics for protein recognition and function research (Nowick); c) novel strategies and mechanistic studies for natural product synthesis (Overman); d) the synthesis of highly oxygenated macrolide natural products with potential cytotoxic and anti-fungal applications (Rychnovsky); and e) the synthesis of dityrosine and ditryptophan crosslinked peptides as protein structure probes (Van Vranken).

Liquid chromatography with mass spectrometric detection (LC-MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. The research that this instrument will enable will have a significant impact in the areas of biochemistry and pharmaceutical chemistry, among others.